Dynamic Recruitment of Spinal Networks

9630972 Schotland In the absence of input from the brain, neuronal circuitry located entirely in the spinal cord is capable of generating highly complex coordinated movements. This research proposal seeks to understand the organization of these networks in the generation of movements. Although a considerable body of research exists which focuses on the location and connections of these neural networks, how the appropriate motor pattern is chosen remains unknown. This proposal takes a different approach by evaluating the effects of time on the organization of these neural circuits. The response to sensory stimuli can range from a single impulse, to a few impulses, to a train of high-frequency impulses. These different impulse patterns might activate different kinds of neurons, might activate the same set of neurons in different ways, or may activate different chemical neuronal activating systems. The results of this research may shed light on how appropriate motor patterns are "chosen" by the temporal structure of the excitation to spinal neural circuits.